EAGER: Recognizing and Escalating International Research Security Vulnerabilities: Pre-Faculty Researchers in U.S.-Funded Engineering Research Teams

Research security is essential to sustaining the United States' leadership in science, engineering, technology, and economic competitiveness. Current research security efforts largely emphasize federal policies, disclosure requirements, institutional compliance, and faculty-focused training. Less is known about how research security is enacted in the daily work of research teams, particularly by pre-faculty researchers such as graduate students, postdoctoral scholars, laboratory managers, and research specialists. These researchers are often deeply involved in managing data, preparing publications, conducting collaborations, and carrying out other activities in which research security vulnerabilities may emerge. Yet there is limited empirical knowledge about how they recognize potential risks, interpret ambiguous situations, or determine when and how concerns should be raised. This project examines research security as a human and organizational process occurring within the everyday practice of engineering research. The work will generate new knowledge to support more effective and evidence-based approaches to research security and strengthen the Nation's capacity to protect federally funded research while preserving the openness and collaboration essential to scientific discovery.

The project asks: How do pre-faculty researchers recognize, interpret, and escalate internationally linked research security vulnerabilities under conditions of uncertainty? Using an in-depth, multiple-case-study approach, the research team will examine selected engineering research laboratories at three to four research-intensive universities. Data will be collected from pre-faculty researchers, their faculty mentors, and research security specialists to investigate three interrelated phenomena: recurring categories of internationally linked vulnerabilities encountered in research practice; the organizational and interpersonal contexts in which those vulnerabilities arise; and the forms of uncertainty that influence recognition, interpretation, and escalation decisions. Analysis within and across cases will identify recurring patterns and contextual variation and inform the iterative development of a conceptual model of recognition and escalation under uncertainty. By concentrating investigation within a small number of institutional settings, the study prioritizes depth and contextual understanding of the recognition-to-escalation process and the conditions that shape how research security concerns are interpreted and acted upon in practice. The project will produce an empirically grounded vulnerability typology, a conceptual model of recognition and escalation under uncertainty, and a vignette-based research instrument to support future large-scale research, comparative institutional studies, and the development and evaluation of research security interventions.